U.S.-France Cooperative Research: Regulation of Ferritin Expression in Plants

This award will support collaborative research in biochemis- try between Dr. Elizabeth Theil, North Carolina State University, and Dr. Jean-Francois Briat, University of Grenoble. The objective of the research is to investigate the regulation of ferritin expression in plants. Iron is required for critical reactions (e.g. cell division and respiration), as well as plant-specific reactions (e.g. photosynthesis and nitrogen fixation). Alterations in iron storage in ferritin occur in chlorosis and nematode infection. In animals, ferritin is encoded in a multigene family and is regulated by iron and through a conserved translational regulatory sequence. Comparable information is lacking in plants. Recently the investigators have shown that pea and soybean ferritins share 55-65% sequence identify with vertebrate ferritins, but soybean ferritin mRNA also encodes a transit peptide apparently related to the plastid location of ferritin. The effect of iron on ferritin synthesis in plants is to change ferritin mRNA concentration. In this project, which combines US and French expertise on ferritin and on gene expression in plants, the investigators will carry out a joint study of ferritin regulation and accumulation in plants during iron stress, nodule formulation, and seed development. Ferritin cDNAs and antibodies will be used to examine: 1) ferritin sequences (regulatory and coding) in plant genomes, 2) the effect of iron on ferritin mRNA content and transcription, and 3) ferritin mRNA and protein accumulation during normal and abnormal nodulation, leaf maturation and seed formation. The results will be important for understanding iron metabolism and ferritin regulation in plants, as well as providing a model in the future for intracellular trafficking related to plastid development.